Studies of Southern Ocean Seabirds in South Pacific Waters During Winter

9526435 Ainley The special opportunity of a cruise by the R/V Polar Duke, from Seattle to Punta Arenas, Chile, during July-August 1995, will be utilized to increase the understanding of the distribution and ecology of Southern Ocean seabirds wintering north of the Antarctic. The work will complement recently completed studies of these species in Antarctic waters. In the recent study, it was determined that almost all of the open-water Southern Ocean species vacate the Antarctic during winter. The cruise will intercept these species on their wintering grounds. Another major project objective, anticipating the initiation of the international project, Southern Ocean Global Ecosystem Dynamics, will be to intercalibrate methods that have been used to estimate seabird densities in the Southern Ocean. The comparison will provide background against which the relative utility of methods can be gauged.